The Reactivity of Metal-Oxo and Metal-Imido Groups

The focus of this research is to identify the fundamental modes of reactivity of transition metal complex containing oxo and imido functions. Detailed kinetic analyses of stoichiometric osmylation reactions will be performed, augmented by electrochemical studies. In another set of experiments involving osmium -catalyzed dihydroxylation , X-ray crystallography and microcalorimetry will be used to provide evidence about complexation between alkaloid ligands and olefinic substrates. Finally, the catalytic method for the aminohydroxylation of alkenes via an osmium (VIII) species will be optimized. With this award, the Synthetic Organic Program is supporting the research of Dr. K. Barry Sharpless of the Department of Chemistry at the Scripps Clinic and Research Foundation. Professor Sharpless will focus his work on elucidating the fundamental mechanism of reactivity of transition metals complexes containing metal-heteroatom multiple bonds. A substantial amount of the effort will focus on the reaction of osmium tetroxide with alkenes in the presence of coordinating tertiary amines. This reaction has achieved prominence as a method for the introduction of stereogenic centers into organic molecules. Yet very little is actually known about how this process occurs..